Connection to NSFNET via SURANET

9416690 Eshlemann This proposal for connection of Western Maryland College to NSFNET through SURAnet. SURAnet is the midlevel network located in the southern United States. These connections will provide operations management and information services and it will give the college a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The benefits of the NSFNET connection include e-mail between local and remote researchers and educators, file transfer capability and the ability to use remote computer resources. Also the college will have the ability to investigate innovation in educational resources and incorporate them into their curricula.